Cross-bridge Kinetics in Extracted/Reconstituted Muscle Fibers

Contractility is one of the fundamental properties of life and exhibited by nearly all cell types. Cell contraction occurs by converting chemical energy into mechanical work. In muscle tissue, contraction generates large force, an is carried out by a specialized structure called a "cross-bridge". The cross-bridge is a portion of a large contractile protein "myosin", and it generates force by interacting with another protein called "actin" (an activator). Contraction is fueled by adenosine triphosphate (ATP), the universal energy source of all living organisms. Our main objective is to document the fundamental mechanisms of contraction at the molecular level. To explore the structure-function relationship, we will employ a technique called protein isoform substitution. In this method, a contractile protein is replaced with that of naturally occurring isoform, which has a known structural modification. By examining the resulting molecular motion of the reconstituted muscle system, we can determine the relationship between the particular structural modification and the functional alteration. In our study we will use the vertebrate skeletal muscle model, but the techniques developed and the knowledge acquired can be applied to cardiac and smooth muscle, as well as to non-muscle motility. In the long run, we hope that these techniques and the knowledge gained will benefit the understanding and treatment of muscular dystrophies and related dysfunctions.//